Initiation, Evolution, and Total Motion Across the Zone of Lithospheric Deformation in the Equatorial Indian Ocean

This is a request for continued funding for investigations of kinematics and rigidity of the Indian Ocean plate and the zone of distributed deformation between the Indian and Australian plates. Aeromagnetic data were collected in the area during the first part of this study and the PI proposes here to extend the study to finite plate reconstructions. The goals are to estimate finite rotations and confidence limits on the motion between India, Africa, and Australia.